Applications of Field Theory to Condensed Matter Physics

This is a renewal grant from a group of condensed matter theorists who are applying advanced theoretical techniques to investigate condensed matter systems with strongly coupled degrees of freedom. The following areas will be studied: quantum Hall and other strongly correlated Fermi systems; superfluids and crystalline liquids; amorphous macromolecular and related vitreous materials; and mesoscopic Luttinger and superconducting systems. %%% This theoretical research deals with a wide variety of problems relating to condensed matter physics and materials research. The work will use state-of-the-art techniques to contribute to research ranging from a microscopic model of rubber to the behavior of ultra-small electronic structures. The work will contribute to basic condensed matter physics and to the understanding of real materials.